Evaluation of a General Sliding Law by Flow Simulation, Haut Glacier D'Arolla, Switzerland

9321350 Harbor This award is for support for a project to use a finite element model for cross-sectional flow to constrain sliding and flow laws for the Haut Glacier d'Arolla (Switzerland). By varying sliding law exponents, the piezometric surface form and position, and the pattern of basil friction it will be possible to constrain the range of conditions that yields velocity fields consistent with empirical data. This work takes advantage of a unique chance to test and refine the general sliding law, and an opportunity to explicitly examine spatial variations in sliding in the context of detailed information on the temporal and spatial development of the glacier's hydrologic system. Although this work will be based on data collected in a mid-latitude alpine area, the results will be of direct relevance to polar glaciology because they can also be applied to glaciers with temperate (warm based) areas in polar regions. ***